The Geometry and Evolution of Low-Mass Star Formation

ABSTRACT

AST-9909966
Whitney, Barbara

This project seeks to link theoretical models for low-mass star formation with observational data. Three-dimensional radiation transfer codes will be developed which attempt to take into account that the process of star formation involves extremely non-spherical geometry such as rotationally-modulated collapse to flared disk structures, as well as bi-polar outflows. Several existing theories describing this process will be tested and compared to the newest high-resolution mid-infrared imaging and spectroscopy data that are now available. In previous work, it has been assumed that the spectral energy distribution of a pre-main sequence star indicates a unique evolutionary state. The new computed models will combine imaging, polarization and spectral energy distributions to test this hypothesis, with particular emphasis on identifying the most relevant: (1) infall scenarios; (2) observational signatures of the current paradigm, the magnetic accretion model; (3) dust properties in the circumstellar environment; and (4) binary formation processes.